Inorganic Thin Films for Molecular Recognition Chemical Sensors

This renewal aims to develop sensitive and selective chemical sensors for potential applications in environmental monitoring, automated manufacturing processes and medical monitoring. The collaborative project involves two PI's, one at the University of New Mexico, and the other at Sandia National Laboratories, in an effort to synthesize and characterize new thin films with molecular recognition capabilities. Three different synthetic approaches will be explored: (i) Zeolite-glass microcomposites; (ii) thin-films with template controlled porosity; and (iii) surface crystallized channel structures. This work is part of the Materials Chemistry and Chemical Processing Initiative, and it is jointly funded by the Chemistry Division and the Division of Materials Research.